STAT-MAPS

STAT-MAPS will develop materials for teaching statistics grades 9-12. STAT-MAPS builds on the experience and results of SIM-PAC, a previous NSF/MDR project, and will be done concurrently with STAT-LINC, a NSF/PTE project. The STAT-MAPS instructional design is based on experiential learning through engagement with problem solving activities. STAT-MAPS begins with statistical foundations for problem solving, specifies learning objectives through its activities and provides materials to implement the instructional strategies. The materials development plan provides for extensive class testing and review. The expected outcomes are a student text and activities manual, and a teacher manual and teacher version of the activities manual. The materials are comprehensive, giving special attention to the needs of the teacher as well as the student. The materials are designed for use in statistics courses as well as providing units for other courses. STAT-MAPS anticipates the commercial publication of materials and provides an evaluation scheme for its work.